Query Processing in Structured Peer-to-Peer Networks

Recently a new generation of P2P systems, offering distributed hash
table (DHT) functionality, have been proposed. These systems greatly
improve the scalability and exact-match accuracy of P2P systems, but
offer only the exact-match query facility. This proposal outlines a
research agenda for building complex query facilities on top of these
DHT-based P2P systems. There are three defining directions of the
proposed research agenda:

Core Algebra: Explore the implementation of a core set of
algebraic query operators that run over DHTs in a P2P network.

DHT APIs: Identify the minimum set of primitives and functions that
need to be implemented by a P2P network in order to efficiently
support the query operators.

Query Optimization: P2P networks are often distributed across slow
network links, and may benefit from distributed database
optimizations like the use of semi-joins. However, it is not clear
how the various ideas in the query processing literature map into
the P2P context, particularly when using DHTs for routing during
query processing. This proposal intends to study the costs and
tradeoffs of various alternatives for the query plan space in this
context.

Simulation of large networks will be used to study the proposed
techniques at Internet scale.